LExEN: Survival Strategies of the Hyperthermophilic Bacterium Thermatoga maritima Under Extreme Temperatures

9809388 Ford The objective of this project is to understand how an extreme high temperature environment has influenced the survival mechanisms associated with the swimming behavior, chemotaxis, and biofilm formation of Thermatoga maritima. The results of this project are to provide insight into the evolution of microorganisms exposed to extreme thermal environments. Information from this project will complement the structure/function relationships of chemotaxis proteins being investigated at the molecular level by other researchers. Understanding how microorganisms optimize their chemotactic response in extreme environments will be useful for technological advances in developing biosensors, bioremediation efforts, and oil recovery operations. ***